Distribution and Origin of Gas and Volatiles in the Bishop Magma

Inclusions of glass in volcanic phenocrysts can reveal the preeruptive state of magma and its pressure of crystallization. Such knowledge is needed to understand volcanic eruptions and the formation and evolution of magmas and ores. This project will determine the vesicularity and crystal content of individual lumps of pumice as well as the compositions of phenocrysts and concentrations of H2O and CO2 in glassy and revitrified inclusions in quartz and feldspar phenocrysts from stratigraphically controlled sites in the rhyolitic Bishop Tuff, Calif. These determinations will be used to assess the following postulates: 1) An accumulation of gas existed in the upper part of the preerupted body of magma; 2) Gas accumulation was mostly responsible for a strong upward decrease in bulk magma density and consequent prevention of convection and survival of magmatic zoning during eruption; 3) the transition from plinian to ash- flow style of eruption corresponds to a sharp change in the amount of accumulated gas; 4) gas accumulation largely derived from deeper levels of differentiation rather than in situ crystallization; 5) H2O was added to magma during ascent.